Liquid Chromatography in Undergraduate Chemistry Instruction

The addition of an autosampler and fraction collector to existing units has produced a modular microprocessor controlled liquid chromatography (LC) system for the Chemistry Department at California State University, Chico. The added components facilitate the use of the system for large undergraduate classes by automating time consuming separations and semi- preparative purifications and sample collection. The entire system is being used for the experimental enhancement of four chemistry classes, and for undergraduate independent study projects. Five new experiments, using LC technology are being developed for the undergraduate laboratories.